Transport Processes in Dense Multiphase Systems

This research involves theoretical modelling of fluid flow, heat conduction, and electric conduction in porous media. The approach is to solve the linear partial differential equations of transport for continuous media but with very complex geometry . This geometry is simulated by periodic cells with each cell containing a number of possibly irregularly placed particles. Of special interest is accounting for the interface of a composite medium since in many applications velocity, temperature, or concentration fields can change rapidly within the first several layers of particles. The research should lead to improved modelling of transport processes within composite materials. Such materials are finding increasing use in technological applications.